Providing Technical Assistance to Increase the Participation and Competitiveness of Minority Institutions in the Major Research Instrumentation Program

This award to the Quality Education for Minorities QEM Network will support technical assistance workshops to broaden participation in NSF’s Major Research Instrumentation Program. In order to offer competitive research and research training programs in science and engineering, it is imperative that all US faculty, including faculty at minority-serving institutions (MSIs), and students conducting research have access to state-of-the-art instrumentation enabling them to perform high quality research. MSIs have an essential role in the production of baccalaureate degree recipients of under-represented groups in STEM disciplines as well as in the disproportionate production of under-represented college graduates who pursue graduate degrees. Ensuring the competitiveness of faculty and students enhances diversity in STEM and helps the science and engineering enterprise achieve the objectives outlined in the America Competes Act.